Liquid Sodium Geodynamo Models

This research seeks to understand the Earth's magnetic field by using unique rotating liquid sodium experiments as models of the Earth's core. The Earth's magnetic field acts as a shield to radiation from the sun. It is dynamic and has been in decline for the past several hundred years. Since we do not understand how a turbulent flow in the core can generate magnetic fields, we presently cannot predict the future of the Earth's field. Experiments give a unique window by being laboratory models of the Earth's core.

These experiments match as many of the conditions as possible in the laboratory, including the importance of rotation, liquid metal induction, and significant magnetic forces. The experiments explore the flow dynamics and conditions by probing the motion and induced magnetic fields of the experiments. Broader impacts for this research include the key role that young researchers play in the ongoing projects. The mentoring of student researchers is a very important part of this project. As well, we have played, and hope to continue to play, an active role in science documentaries addressing changes in the geomagnetic field. The scientific results of this research have implications in geophysics, astrophysics, plasma physics, nonlinear dynamics, and fluid dynamics -- the research is inherently cross-disciplinary.